Research in Elementary Particle Theory

9411546 Goldberg Research in theoretical particle physics includes a continuing study into the dynamics driving the evolution of the early universe, and the origins of the fluctuations observed in the cosmic microwave background radiation. A second project examines the links between this dynamics and rare decay processes that can be observed in the laboratory. Such links can provide important checks on our current understanding about the early universe. ***